Mathematical Sciences: Midwest Probability Colloquium

9632632 Pinsky Abstract This project supports the eighteenth annual Midwest Probability Colloquium, held at Northwestern University in Evanston, Illinois on October 18-19, 1996. The Colloquium is an annual gathering, at Northwestern, of 75-100 experts in probability theory from the Great Lakes region and other parts of the U.S. and Canada. The 1996 program features David Nualart of the University of Barcelona, Spain, as the main speaker, with Michael Cranston of the University of Rochester and Uwe Einmahl of Indiana University as other invited speakers. More than half of the NSF support is targeted toward stipends for young researchers, especially those traditionally underrepresented groups such as women and minorities. Availability of awards is advertised in publications of the Institute of Mathematical Statistics, the American Mathematical Society and appropriate web sites.